US - East European Bridge Conferences and Lab Tour

9322607 Nowak The objective of the program is to review the current methods and technology in bridge evaluation, repair and rehabilitation used in Poland, Czech Republic, Slovak Republic and Hungary. The major areas include: (1) analytical evaluation of bridges (loads, system identification methods, damage accumulation models, time history models), (2) bridge management systems (optimization models, decision making strategy, BMS data set, bridge expert systems, strategic long range planning, (3) diagnostic procedures (bridge tests, weigh-9n-motion, performance monitors, nondestructive techniques, signal processing, integrated sensor systems, microwave, acoustic and optical techniques), (4) materials and techniques for repair and rehabilitation of bridges (steel, reinforced and prestressed concrete, masonry arches, timber, new materials). Accordingly the Bridge Study tour will attempt to review state of the art summary of main topics as reviewed on one hand in the U. S. and, on the other hand, in Poland, Czech Republic, Slovak Republic and Hungary, identify the research needs, in particular topics for cooperative projects; and derive some recommendations that reflect the need in manpower, technology transfer and education for the near future. The Study Tour will involve the US group of bridge researchers, consultants and representatives of bridge authorities, visiting Poland, Czech Republic, Slovak Republic and Hungary. the local organizers will organize special conferences, meetings and field trips to the construction sites. The results will be presented in the report. ***